CONACyT: Broadband Digital Wireless Networks: Joint U.S. - Mexico Research

9613727 Roy, Sumit University of Texas, San Antonio CONACyT: Broadbrand Digital Wireless Networks: Joint U.S - Mexico Research This international cooperative project with ITESM enables researchers from the two universities to coordinate their research, use the ATM testbed, provide for faculty at the University of Texas at San Antonio to mentor some guest Mexican graduate students at UTSA, to assist with curriculum and instruction at ITESM, and to plan for a joint initiative for a broadband wireless network to serve the border region.